I-Corps: A Compact Silicon Chip for Laser Injection Locking and Optical Parametric Oscillation

The broader impact potential of this I-Corp project is the development of a compact chip technology for generating coherent lasers from visible to infrared. The proposed technology is designed to turn an inexpensive, limited performance laser diode into a top-of-the-line diode with a broad color range. The resulting product may be an affordable alternative to high-end laser products and extend laser emission wavelengths to a wide range of interest. In addition, the chip technology based on silicon nitride photonics may be produced by wafer-scale CMOS-compatible fabrication and may support laser light generation from 350 nm to 4500 nm, which would help solve existing scalability challenges in a variety of application fields. The proposed technology may provide a universal and scalable silicon photonics solution for integrated lasers for a variety of applications including quantum science, biochemical sensing, autonomous driving and LiDAR, and augmented/virtual reality.

This I-Corps project is based on the development of a compact chip-integrated laser for generating coherent laser sources that can produce light from visible to infrared. The goal is to combine laser injection locking and optical parametric oscillation (OPO) based on a photonic crystal ring (PhCR). The proposed technology takes advantages of two nanophotonics technologies: on-chip OPO and high-quality PhCR, to solve the challenge of integrating chip laser with ultra-broad spectral coverage from visible to infrared. Lasers with such a wide range have not been proposed or demonstrated previously by existing technologies. The proposed chips may be produced in large scale, hence low-cost, by wafer scale CMOS compatible fabrication. In addition, the proposed technology may be compatible with other existing laser technologies, providing a versatile platform to generate high quality laser sources and a wider wavelength range. Such a device may significantly improve the ability of existing microcavities to enhance the interaction between light and matter and improve integrated commercial and research activities, particularly for integrated quantum science.